EAGER: On the Observability of Turbulent Flow from Scattered Lagrangian Particle Tracks

Understanding how fluids move is essential for technologies ranging from aircraft and energy systems to environmental monitoring and biomedical devices. Fluid motion is often measured experimentally by tracking small particles as they move with the flow. These measurements are precise, but there are large gaps between the particles, making it difficult to determine how the fluid behaves in between them. This missing information is needed to calculate forces such as lift and drag, to monitor the transport of heat and mass, and to assess mixing. These quantities are, in turn, critical for understanding flows in engineering systems such as air moving over a wing or gas flowing inside a turbine. There are already powerful computational methods for reconstructing flows from particle tracks (that is, to “fill in the gaps” between particles). However, there is no clear understanding of when such reconstructions are reliable or how much data are required to produce an accurate estimate, especially for turbulent flows. This project will address this gap by asking a fundamental question: under what conditions can complex fluid motion be accurately reconstructed from scattered particle trajectories? Answering this question will improve the reliability of flow measurements used to study advanced energy and propulsion systems, environmental science, and bioengineering applications such as blood flow. The project will also support graduate education by training students in fluid mechanics, data science, and computational modeling.

The research will develop and apply physics-based computational tools that combine fluid dynamics models with optimization methods and machine learning techniques to reconstruct flows from sparse particle data. The central idea is that the difficulty of reconstruction is governed by the complexity of the flow. This complexity will be quantified using tools from dynamical systems theory that measure how sensitive a flow is to small changes. More concretely, complexity reflects how many independent “degrees of freedom” the flow has, or how many distinct ways it can evolve over time. The project will test this idea using systems of increasing difficulty, ranging from simple one-dimensional models to fully three-dimensional turbulent flows. Machine learning methods will be used to estimate flow complexity directly from data, while physics-based solvers will be applied to determine whether accurate reconstructions are achievable in practice for a given flow. By systematically comparing data requirements and flow complexity, the project aims to establish limits on what can and cannot be inferred from particle measurements, and to provide a theoretical explanation of these limits. All software and datasets developed for this project will be released openly, supporting future research in data-driven sensing, machine-learning-enabled measurement tools, and advanced diagnostics for aerospace, automotive, biological, energy, and environmental systems.